CPS: Synergy: Distributed Sensing, Learning and Control in Dynamic Environments

The objective of this project is to improve the performance of autonomous systems
in dynamic environments, such as disaster recovery, by integrating perception, planning
paradigms, learning, and databases. For the next generation of autonomous systems to be
truly effective in terms of tangible performance improvements (e.g., long-term operations,
complex and rapidly changing environments), a new level of intelligence must be attained.
This project improves the state of robotic systems by enhancing their ability to coordinate
activities (such as searching a disaster zone), recognize objects or people, account for
uncertainty, and "most important" learn, so the system's performance is continuously
improving. To do this, the project takes an interdisciplinary approach to developing
techniques in core areas and at the interface of perception, planning, learning, and databases
to achieve robustness.

This project seeks to significantly improve the performance of cyber-physical systems
for time-critical applications such as disaster monitoring, search and rescue, autonomous
navigation, and security and surveillance. It enables the development of techniques and
tools to augment all decision making processes and applications which are characterized
by continuously changing operating conditions, missions and environments. The project
contributes to education and a diverse engineering workforce by training students at the
University of California, Riverside, one of the most diverse research institutions in US
and an accredited Hispanic Serving Institution. Instruction and research opportunities
cross traditional disciplinary boundaries, and the project serves as the basis for
undergraduate capstone design projects and a new graduate course. The software and
testbeds from this project will be shared with the cyber-physical system research community,
industry, and end users. The project plans to present focused workshops/tutorials at major
IEEE and ACM conferences. The results will be broadly disseminated through the
project website.

For further information see the project website at:
http://vislab.ucr.edu/RESEARCH/DSLC/DSLC.php